A Computer Hardware Sequence for Computer Science Majors

The Department of Computer Science will purchase microprocessor interface systems, logic designers, robotics systems, and associated hardware to establish a sequence in computer hardware. A digital laboratory, built around the microprocessor/microcomputer development system, will be established. This laboratory will serve as the practicum center for a sequence of three courses, which are being designed currently: Logic Design, Operating Systems and Computer Architecture, and Microprocessor-Based Systems. Computer science students who graduate from the program will have experience in digital logic, computer interfacing, data acquisition, and computer control. Thus they will be better prepared for industrial positions in computer science or for graduate school.